Instrumentation for Astronomical Observatories in Antartica

Abstract 9461160 Osterman This SBIR Phase I project is to develop, fabricate and test a new type of micromachined bolometric detector using silicon nitride as a high strength substrate. These bolometers will be suitable for mass production so they will be able to be assembled into large arrays for imaging at millimeter wavelengths; whereas, currently bolometers are "hand-made" and so variable from detector to detector that large arrays are nearly impossible to build. If this development program is successful it will open up the field of high angular resolution millimeter wavelength astronomy, especially at the South Pole observatory. It is expected that the development of imaging bolometers will lead to a number of applications, possibly in the medical arena or for space surveillance. ***